Development of a Mobile System to Measure Stresses in Structures

The objective of this project is to investigate the feasibilityof a portable system to evaluate the in-situ conditions of a structure in order to determine the safety and/or repair or retrofit. The research will investigate the merger of optical and computer technologies for the analysis of complex problems.